Low Energy Nuclear Reactions in Late Stellar Evolution

The project is concerned with the study and simulation of low energy
nuclear reactions during the post-main sequence phase of stellar
evolution. The particular goal is the measurement of helium burning
direction in Red Giant stars and hydrogen and helium burning processes in
Asymptotic Giant (AGB) stars. This information is necessary for the
interpretation of observational data on isotopic and elemental abundance
distribution in the atmospheres of Red Giants and in the planetary nebulae
surrounding AGB stars. The determination of these processes is not only
important for the understanding of nucleosynthesis mechanisms but also for
the interpretation of fast dredge-up and convection processes in these
The experiments are performed at the Notre Dame low energy KN accelerator
which is dedicated for nuclear astrophysics measurements.